Graduate Fellowship: Carbonate Formation in Sediments of theWest Florida Escarpment

This graduate fellowship will support Ms. Jennifer Coston in a doctoral research program on the roles of microbial activity and pore water characteristics in the cementation of carbonates in the sediments of the deep sea brine seeps in the Florida escarpment region.